Enhanced Teaching and Learning Through Problem-Based Pedagogy in Undergraduate Physical Science Courses for Non-Science Majors

This project aims to serve the national interest by improving physical science teaching and learning through evidence-based curriculum and pedagogy with undergraduate, non-science majors, including undergraduate elementary teacher candidates. The American University general education program includes five Habits of Mind course requirements in which Natural-Scientific Inquiry is one of the areas. This project will revise two science courses that meet this requirement. Through this IUSE Level 1 Engaged Student Learning project, these two courses will be revised to include problem-based learning, as well as to align course content with the Next Generation Science Standards (NGSS). A key feature of this project is the faculty development dimension associated with implementing the research-based pedagogical strategies in the revised courses. Thus, this project intends to create and test a replicable model of science instruction at a medium-sized, urban, private research university to improve the quality and effectiveness of undergraduate teaching in physical science, as well as to improve undergraduate STEM teaching and learning for non-STEM majors including preservice teacher candidates.